FEMA's USAR Task Force Deployments: Implications for The Management of Emergency Response

FEMA's USAR Task Force Deployments: Implications for The Management of
Emergency Response

The Urban Search and Rescue taskforces (USAR) sponsored by FEMA are a
key component of the federal emergency response system. This study
examines the a. extent to which these taskforces are impacted by known
problems at search and rescue (SAR) operations, as well as the solutions
they have developed to these problems, and b. their interaction with law
enforcement agencies, in what has become a critical factor in the
conduct of present day SAR operations. Specifically, the research
analyzes the relationships among FEMA USAR taskforces and support
personnel, DoD support personnel, local agencies and state emergency
management offices, other state and regional agencies present during
major deployments, law enforcement agencies (FBI, local and state
police), and volunteers. It also looks at the operation of the emergency
medical system (EMS) during USAR deployments, particularly the securing
and routing of injured persons and their transportation to medical
facilities. The study identifies areas of cooperation and conflict
among these social actors, and changes in SAR operations and their
impact on organizational culture, information, training, and purpose.
It also develops an inclusive description of the types of collective
actors that are present during USAR deployments.

Focus groups from ten USAR taskforces and approximately 100 in-depth
interviews with representatives from other agencies and groups that
participated in nine USAR national deployment sites are done to develop
a useful blueprint for local, state, and federal agencies and private
organizations to follow during participation in SAR operations. The
intent is to improve the effectiveness of disaster responses and
contribute to the social science understanding of the emergent
multi-organizational SAR system as a form of organized, adaptive crisis
response activity.